Tritium and Helium-3 in the South Atlantic - Sampling at 25 Degrees and MAPCOWS

This project will analyze samples for tritium and helium-3 taken on two cruises in the South Atlantic Ocean. These data along with concurrently collected data by other investigators will lead to a better description of the circulation in the South Atlantic Ocean and characterization of the formation of near-surface water masses.